Algebraic Topology

DMS-0071482
Randy McCarthy (PI)
Matthew Ando (co-PI)

A fundamental idea in algebraic topology is to study
topological spaces by attaching to them algebraic
structures which are invariant under deformations.
A good structure will often produce profound relationships
with other areas of mathematics. Ando and McCarthy
propose to investigate problems involving three such
structures, elliptic cohomology, algebraic K-theory,
and the calculus of functors.

Ando proposes several projects involving elliptic
cohomology, which provides a relationship between
topology, algebraic geometry, and string theory.
For example, he proposes a new approach to the
rigidity theorems for elliptic genera, based on
the algebraic theory of theta functions. McCarthy
plans to further pursue his already successful
program of using the calculus of functors to better
understand algebraic K-theory. For example, he
hopes that ideas from the calculus of functors will
clarify Neeman's K-theory of triangluated categories.
Ando and McCarthy also plan a joint project to
investigate the role of the calculus of functors
in the new homotopy theory of schemes of Voevodsky
and others.